Can Algebra Save the World, or Can the World Save Algebra? ANew College Freshman Mathematics Course: Algebra with Applications to Environmental Issues

The project is to pilot, refine, and implement an introductory level college mathematics course, Algebra with Applications to Environmental issues (AAEI), which will replace the traditional college algebra. The format and context are radically new, stressing experintial learning motivated by real-world problems in conservation, ecology and the environment. AAEI is designed in the spirit of the NCTN Curriculum and Evaluation Standards for School Mathematics adapted to the college level, emphasizing mathematical modeling of real data, decision making, reading and writing. Use of technology eliminates the boredom and drudgery of manipulation. Group assignments, individual analysis, student presentations and written reports, will replace traditional classroom lecture and provide students with hands-on experinece in mathematics. This course is appropriate for all entering college students, even those with limited mathematical experience, and offers greater access to further study inthe sciences, engineering ro mathematics. AAEI will be fully integrated into the institution curriculum and will then be disseminated to each Institution in the University System of Georgia for consideration as a course to satisfy the core mathematics requirement. A newsletter is planned to introduce AAEi nationally. The response to units of this course already piloted indicate that students have gained a new perspective on mathematics as a tool, thus increasing awareness, enhancing interest and appreciation of its role in society. Perhaps we can even eliminate the time-worn question, "What's this stuff good for?."